Improved Core Science Courses for Engineering Transfer Students

This project provides improved learning opportunities in mathematics, chemistry and physics for engineering majors through the creation of a microcomputer laboratory designed to support instruction in these courses.To demystify the abstract nature of these courses, engineering majors need an environment in which they can interact with one another in working complex experiments and in solving problems with an increased interdisciplinary base. An instructor-developed program to track both student time and their level of success on computer assignments will become an integral part of these courses. Feedback from the program will advise students of their progress toward skill development in time to secure assistance, if necessary. Feedback to the instructor regarding the nature and extent of student progress toward required skills will allow the learning process to inform the teaching process on a cyclical basis.To implement the proposed change in the instructional process within math and science courses, a series of computer modules will be created to support the new methodology. These modules will be based on existing course topics but designed to provide students with the opportunity to: Practice with problem solving; Discover underlying concepts and principles; Interrelate learning between disciplines; Investigate complex and tedious problems; and, Compete effectively in an increasingly technologically literate and student population.